Investigation of an Early Proterozoic Crustal Boundary Zone in Western Arizona

It is herein proposed to investigate the nature and origin of an early Proterozoic crustal boundary zone in western Arizona. The research is a collaborative project that will involve geological, geochemical and geochronologic studies with the following objectives: 1) Mapping and structural analysis of important supracrustal- granitic associations near Kingman, AZ. 2) Lithologic analysis of representative supracrustal successions. 3) Characterization of metavolcanic rocks in terms of modes of eruption and geochemistry. 4) Field, petrographic, and geochemical studies of metasedimentary rocks. 5) Use of immobile element ratios to constrain the composition of the mantle sources of mafic igneous rocks. 6) Selected U-Pb zircon dating of felsic volcanic and granitic rocks (syn-to post-tectonic). Collectively, results from these studies should provide a valuable data base to constrain the origin and tectonic setting of early Proterozoic successions in western Arizona, and to evaluate the existence, location and timing of a possible early Proterozoic collisional event in this part of the Southwest.